Collaborative Reseach: Estimating Compensated Discount Functions

Proposal Title: Collaborative Research: Estimating Compensated Discount
Functions
Institution: Boston University
Abstract Date: 07/11/08

This research uses economic experiments to empirically test fundamental theories
about how people make economic decisions in dynamic situations. Existing
experiments on intertemporal choice do not provide conclusive evidence for or against
these theories, because they do not control for the fact that subjects might expect
changes in their future financial situation.

The investigators conduct a series of experiments designed to address this problem. In
their experiments, they ask subjects to decide between dated prizes that are contingent
on the subject's real income. The prizes are either a money payment to the subject or a
contribution to a charity chosen by the subject.
The experiments are conducted in Iceland in collaboration with researchers from the
Internal Revenue Services of Iceland and the University of Reykjavik. Iceland is unique
because under Icelandic law personal income tax returns are public information, so the
investigators will be able to determine each subjects actual earned income in future
years.

This research will resolve a debate in economics that is directly relevant for public
policy. Researchers have been concerned that many people do not make consistent
choices in dynamic situations. If this is the case, then society may be better off with
public policies that constrain individual choices about retirement savings, unhealthy
behaviors, and other goods where an individual may choose pleasure today despite
large costs in the future. The results will tell us if inconsistent choices are truly a
widespread phenomenon.